Theoretical Studies of the Microscopic Mechanisms of Friction and Wear

The long-range goal of this research is to develop a detailed microscopic theory of friction and wear using molecular dynamics simulation. The molecular dynamics method allows one to follow the time evolution of the dynamical state of a system of interacting particles by numerical integration of the classical equation of motions.